SQUID Technology for Improved NMR/NQR Measurements Below 1MHz.

This project will introduce a new technique for low-frequency NMR and NQR measurements in which a SQUID detector functions as a high- sensitivity broadband detection system for stochastic NMR measurements. The inherent sensitivity of a SQUID sensor, and its wide bandwidth make it the ideal detection device for low- frequency, broadband resonance experiments. The bandwidth of the SQUID system also offers a unique match to the broadband nature of the rf excitation used in stochastic NMR. The combination of both wideband and pulsed measurement capabilities in a single instrument offers the promise of a unique and powerful new tool in NMR and NQR studies of modern materials.